Development of Computer-Based Curriculum Materials for Calculus: A Planning Project

Mathematicians at Washington State University will develop, coordinate, and write multi-disciplined computer-based curriculum materials for calculus to be implemented at two high schools, a community college, a private college and a public university. Generic curriculum materials for engineering calculus, calculus for life sciences, and business calculus will be developed by faculty from engineering, biology, chemistry, business and sociology. The materials will include "laboratory" exercises that use computing devices such as HP-28 and microcomputers using symbolic manipulation programs. These realistic problems will use numerical methods that illustrate the power, difficulties and logic of computation and graphical solution to problems. Electronic "slide shows" with both animated and static computer graphics of classroom demonstrations and lectures will also be developed. The principal investigators are well known researchers, who have wide range experience in mathematics education. They will work closely with Pullman and Moscow High Schools, Spokane Falls Community College and Gonzaga University.